U.S.-Japan Collaborative Research: Next Generation High-Tc Oxide Superconducting Machines and Devices

9315882 Iwasa This award supports a two-year cooperative research project between Professor Yuki-Kazu Iwasa, Department of Mechanical Engineering, Massachusetts Institute of Technology, and Professor Kaoru Yamafuji, Department of Electronics, Kyushu University, Fukuoka, Japan. The project was begun in 1992 an involves other U.S. investigators from the Brookhaven National Laboratory, Florida State University, the University of Illinois, and Iowa State University. Other Japanese investigators are from Yokohama National University, Iwate University, Seikei University, and Waseda University. The specific issues to be covered in this phase of the collaborative effort are: (1) improvement in critical currents in high-Tc superconductors, (2) conductor issues other than critical currents, and (3) magnet issues. The United States and Japan are the leaders and rivals in superconducting magnet technology and are the nations most intensely engaged in high-Tc superconductor research and development. At present, since the R&D effort in Japan on high-Tc superconductivity, both in university and industry, is substantially grater than it is in the United States, it is likely that this exchange program will benefit the United States researchers. ***